Integrating FT-NMR Spectroscopy into the Chemistry Curriculum

9452076 Mink The Department of Chemistry is purchasing a 200 MHz Fourier Transform NMR spectrometer with a 1H-13C probe and a variable temperature controller. The instrument is an integral part of the ongoing updating of the curriculum to emphasize chemical structure, synthesis and dynamics in the laboratory courses. The project incorporates "hands-on" use of the FT-NMR spectrometer across the curriculum, including 1-D and 2-D analysis in the organic, inorganic and biochemistry courses. Two new laboratory courses are also undergoing development, "Practical NMR Spectroscopy" and "Advanced Synthesis." "Practical NMR Spectroscopy" includes the theory of FT-NMR spectroscopy, and experiments using multiple-pulse sequencing, selective decoupling, and 2-D spectroscopy. "Advanced Synthesis" is a project-based, research-oriented course emphasizing the synthesis of organic and inorganic compounds combined with techniques of 1-D and 2-D FT-NMR spectroscopy for product elucidation and mechanistic studies. The instrument is also being used by students in our non-majors organic chemistry courses, and by local high school teachers and community college students. The instrument is also enhancing an active undergraduate research program.